Microwave Processing of Ceramic Materials

The investigator will model and analyze a class of physical
problems arising in microwave processing of ceramics. These problems
give rise to challenging nonlinear initial boundary value problems
for partial differential equations. Their mathematical formulation involves
one or more nonlinear parabolic equations, governing the diffusion of heat and
the diffusion of a chemical concentration, and the time harmonic
version of Maxwells equations, governing the propagation of electromagnetic waves.
These equations are coupled together in a nonlinear fashion and, in
addition, nonlinear heat balances are required in certain applications
where surface temperatures produce significant thermal radiation.
Kriegsmann will develop and use asymptotic methods, dictated
by certain physical limits, to simplify the mathematical systems and
develop and use numerical methods to solve the reduced problems.

The goals of the work supported with this award are twofold. The first is
the mathematical understanding of the basic physical mechanisms which
make microwave processing work. Such an understanding will give scientists
and engineers involved in microwave processing of ceramics more basic scientific
underpinnings to judge and interpret their experimental findings.
The second goal is the development and application of asymptotic, numerical,
and other approximate methods required to obtain an accurate description
of more realistic and complicated processes. The successful completion
of the planned research will allow engineers and scientists to design
more efficient sintering and joining processes for ceramics which will allow
them to produce higher quality materials. It will also help in the design
and implementation of microwave assisted vapor deposition processes
which are highly promising in the construction of composite ceramic
materials